Graduate Research Assistantships for the Study of the Dynamics of Atmospheres and Oceans

9310248 Philander This award provides funds for graduate research assistantships under the Atmospheric and Oceanic Sciences Program at Princeton University. This Program represents the academic component of a very successful collaboration between NOAA's Geophysical Fluid Dynamics Laboratory (GFDL) and Princeton University's Geological and Geophysics Sciences Department. Some of the GFDL scientists teach some of the courses in the AOS Program and serve as the advisors to the students under this award. The students have access to GFDL's computational facilities. Students' disseration topics cover a variety of challenging problems related to weather and climate, such as interdecadal variation of climate (using a coupled ocean-atmosphere model), representation of cloud dynamics in numerical models, and the dynamics of monsoonal circulations. The student program is highly competitive and has produced many excellent scientists who are among the leaders in the field today. ***